Young Investigator Forum, 12th Pacific Rim Conference on Ceramic and Glass Technology (PACRIM 2017); Waikoloa, Hawaii; 21-26 May 2017

This award provides support for the Young Professionals Forum at the 12th Pacific Rim Conference on Ceramic and Glass Technology (PACRIM 12), held in conjunction with the Glass & Optical Materials Division Meeting (GOMD 2017), Waikoloa, Hawaii, 21-26 May 2017. The focus of this symposium is on recent societal challenges affecting Ceramic and Glass Technology, including but not limited to energy, health, and environmental aspects. This symposium will bring together young researchers and scientists from the Pacific Rim to discuss new approaches and challenges in materials synthesis and to provide a platform for intensive exchange of ideas, knowledge, and networking.

The award supports participation in the Young Professionals Forum of early career scientists as well as students. The PIs will seek to encourage participation by attendees from underrepresented groups, in particular. The program supports the exchange of scientific information and knowledge in the technical sessions through oral and poster presentations.